Measuring Internuclear Distances by Solid-State NMR

Professor Terry Gullion of West Virginia University is supported by the Experimental Physical Chemistry program to further develop solid state NMR methods applied to amorphous solids. The systems to be studied include molecularly doped polymers relevant to xerography. The PI is coinventor of REAPDOR and REDOR methods and in this proposal he will further enhance the utility of these methods. For REAPDOR, he proposes to derive a universal calibration curve so that costly quantum calculations are not necessary for the interpretation of the signals.

Development of NMR methods affords opportunities to study amorphous solids, which are otherwise difficult to study. Once the field matures, the methods have the potential to be applied broadly to problems in solid state physics, chemistry and materials science. The application here, the structure of molecularly doped polymers, is relevant to xerography.